US-Mexico Workshop in Numerical Analysis; Merida, Mexico, January 2001

0003147
Tapia

This U.S.-Mexico award will support 15 U.S. participants to the "Seventh US-Mexico Workshop in Numerical Analysis," that will take place in Merida, Mexico, January 2001. Organizers are Dr. Richard Tapia, Rice University, Houston, Texas, in collaboration with Dr. Jose Luis Morales, of the Instituto Tecnologico Autonomo de Mexico (ITAM)in Mexico City. Participants will include academics, engineers and students.

The main themes of the workshop are nonlinear optimization, semi-definite programming, numerical linear algebra related to optimization, and application of optimization in network design, finance, and chemical engineering. This meeting follows a series of workshops organized during the 1980s and beginning of the 90s, which played an important role in the development of numerical analysis in Mexico. The themes of the workshop reflect emerging research areas with important practical applications. A volume of proceedings will be published thus ensuring dissemination of the results of the workshop.